Dynamical Systems Approaches to Partial Differential Equations

Professor Wayne will study the long-time behavior of partial
differential equations like the Navier-Stokes, Euler, and Maxwell's
equations which arise in the study of fluid dynamics and optics. He
will use methods and techniques from dynamical systems theory to make
qualitative and quantitative predictions about the behavior of the
solutions of these equations and will focus on five main areas: (i)
The derivation, justification and experimental validation of model
equations for waves on fluid surfaces; (ii) The long-time behavior of
solutions of the Navier-Stokes equations; particularly vortex
solutions; (iii) The modeling of very short pulses in optical media;
(iv) The existence and stability of pulse solutions in coupled optical
systems; and (v) The approximation of the motion of thin elastic
media. In particular, he will attempt to extend the insights gained
from understanding the invariant geometrical objects in the phase
space of ordinary differential equations to the infinite dimensional
setting of partial differential equations, focusing particularly on
the case of problems on unbounded spatial domains where the presence
of continuous spectrum may cause qualitative differences between the
behavior of the finite and infinite dimensional systems.

The types of systems that Professor Wayne will study arise in many
applications, including nonlinear optical communication, fluid
mechanics and the behavior of elastic materials. For instance,
attempts to obtain faster and faster transmission of information
through optical fibers often utilize extremely short optical pulses.
While there is a well understood and much studied method for
approximating the transmission of long pulses through such fibers
optical technology is now reaching the point where this approximation
breaks down and new models are needed. Point (iii) in the list of
projects above aims to develop such approximations. This problem,
like the others that will be studied in this project, is characterized
by the fact that while it is impossible to solve the equations
governing the system exactly, applications require at least a
qualitative understanding of the behavior of solutions. Professor
Wayne's research has three goals: First, the derivation of model
equations which can be used to approximate the behavior of the true
physical system -- whether it arises in optics, fluids, or elsewhere.
Secondly, the computation of accurate estimates to control how much
the behavior of the true system can deviate from that of the model
system, and finally the development of geometrical insights which can
provide a qualitative means of understanding and predicting the
behavior of this type of complicated physical system even if the
actual solution can not be computed.